Research in Experimental Nuclear Physics

This grant supports research activities which will address a wide range of issues in nuclear physics. Measurements of the asymmetry in the beta-decay of mirror nuclei will test the Conserved Vector Current hypothesis. Other measurements of the beta-asymmetry/electro-polarization correlation will test aspects of the Standard Model for the weak interaction. Intermediate energy electron scattering experiments will give information on the electric and magnetic form factors of the neutron, electromagnetic properties of 3He, and may give evidence of color transparency in collisions with high momentum transfer.